Quasiregular Mappings and Analysis in Nonsmooth Spaces

DMS-9970427
ABSTRACT

This proposal has three parts. In Part I, Heinonen outlines a program for
a study of geometric branched covers between generalized manifolds. This
is a joint project with Seppo Rickman. The motivation to build such a
theory comes from the attempts to understand what metric spaces admit
(possibly branched) Lipschitz or quasisymmetric parametrizations in
Euclidean space. In Part II, Heinonen explains how branched covers and the
recent advances in analysis on metric spaces could be used to approach the
parametrization problem. In different terminology, Heinonen proposes to
characterize locally Euclidean metric gauge by using the theory of
quasiregular maps. This is a joint project with Dennis Sullivan. In Part
III, Heinonen discusses the problem of the branch set of a quasiregular
map. Analytic conditions are searched that would imply a given
quasiregular map is a local homeomorphism. This problem is relevant to
Part II, and to problems in nonlinear elasticity where deformation of
bodies are investigated. Part III is a joint project with Tero
Kilpel"ainen.

The proposal continues the PI's earlier investigations, where discrete
methods in analysis and geometry are being searched that would serve in
spaces that are not smooth in the classical sense. Here the word
``analysis'' means the branch of mathematics that developed out of the
Calculus; it is the study of continuous changes in infinitesimal data,
from which one wants to predict global conclusions. ``Geometry'' is the
study of space, its many forms and varieties, in many possible dimensions.
Discrete methods mean the opposite to continuous, or calculus methods, and
involve more finite, ``counting'' ideas, such as those done by a computer,
albeit in this work still of analytic and geometric flavor. The concept of
quasiconformality enters the discussion in the most subtle way: it allows
the space and its formation to be singular (for instance, with kinks or roughness) at times and in places, but not everywhere and not all the time. There is a certain control in the distortion, which perhaps looked artificial to the mathematicians 40 years ago when the first research in the field was conducted. Now quasiconformality is a ubiquitous phenomenon in mathematics. From the work of Dennis Sullivan in the late seventies we know that every space
that locally looks like a flat space of Euclid has a quasiconformal
structure albeit not a smooth structure in general; and this is true in
every dimension but four. Nevertheless, also in dimension four, there are
conjecturally an infinity of spaces where one cannot do ordinary, smooth
analysis, or calculus, but where one can do quasiconformal, nonsmooth
analysis. The proposal addresses both the need to have a better
understanding of this new calculus in nonsmooth spaces and methods how to
recognize spaces that are quasiconformally Euclidean. Although the main
questions in the proposal are motivated by a basic quest for understanding
the structure of space, the consequent study of singularities in
transformations has had applications to material sciences, where one wants
to know when a deformed body collapses onto itself under a strain.